Isotopic Studies Investigating the Petrogenesis of Continental Rhyolitic Magmas (Earth Science)

There is remarkably little consensus on the origins of continental rhyolites, due in part to the relative scarcity of isotopic studies of silicic volcanic systems and to the difficulty of detecting upper crustal contamination when wall rocks have little isotopic contrast with magmas. This Nd, Sr, and Pb isotopic study of the Long Valley system to be carried out in the Radiogenic Isotope Geochemistry Laboratory (RIGL) will determine how the proportions of mantle, lower crustal, and upper crustal material change with time during the growth and evolution of a major crustal magma chamber. If rhyolitic magmas contain a significant mantle component, as opposed to being entirely recycled older crust, it is important for models of crustal growth and evolution. The second part of the research project investigates the utility of argon as a tracer for upper crustal contamination, taking advantage of the fact that there is generally a large contrast between magma and wall rock in argon concentration and composition. Laser fusion 40Ar-39Ar analyses of individual phenocrysts will be used from a suite of volcanic samples known to have extraneous argon, which may have been incorporated when roof blocks foundered on caldera collapse. The interactive component of this proposal has several parts: (1) to introduce her to the department, Dr. Mahood will give a general interest talk during the regular lecture series; (2) during Spring semester she will participate in Geology 535, an interdisciplinary geochemistry seminar; (3) at the beginning of Fall semester Dr. Mahood will host a dinner for women graduate students, following which she will present the results of Zappert and Stansbury (1985), using it as a starting point for a discussion of their graduate school experiences; (4) Fall quarter she will teach a formal course in physical volcanology for upper division and graduate students; and (5) during her entire stay at University of Michigan, she will supervise analyses for one of the iotopic systems in the RIGL. This project furthers VPW program objectives which are (1) to provide opportunities for women to advance their careers in engineering and in the disciplines of science supported by NSF and (2) to encourage women to pursue careers in science and engineering by providing greater visibility for women scientists and engineers employed in industry, government, and academic institutions. By encouraging the participation of women in science, it is a valuable investment in the Nation's future scientific vitality.